Student Participation in Fifth Distributed Memory Computing Conference, Charleston, SC, April 9-12, 1990

This is a project to support attendance by approximately twenty five graduate students at the Fifth Distributed Memory Computing Conference in Charleston, South Carolina on April 9.12, 1990. Priority is given to students presenting papers in the student paper competition and to women and minority students. The conference provides a forum for researchers in the field of distributed memory computing to present results and exchange ideas and information. It is a continuation of the Hypercube Concurrent Computers and Applications conference series.//